Research Careers in Biology for Minority Scholars

The Biology Department at California State University, Los Angeles will institute a program to recruit high school graduates, community college graduates, Cal State L.A. matriculated students, graduates from other colleges and universities, and current high school biology teachers into a research and mentoring oriented program designed to increase the number of minority students who matriculate into Ph.D. degree programs. The research areas that are involved in this program are ecology/environmental biology, genetics, molecular biology, and physiology. Students who take part in this program will be active researchers in the laboratories of biology faculty members with proven research track records. The students will also be involved in an ongoing faculty/student mentoring program funded by California State University, Los Angeles. Several federal reports have indicated that the United States faces a severe shortage of science faculty members by the year 2010 if more students do not become interested in teaching and research careers. The demographic makeup of the United State is changing, particularly in the younger age groups. Black and Hispanic school children are projected to comprise 47% of the total school age population by the 2000 and this change has already occurred in the Los Angeles area. The only way that the United States can meet future potential Shortfalls of scientists is by recruiting, retaining, and graduating more minority students and this California State University, Los Angeles program will help in this regard.